The Use of a Computer-Interfaced Differential Scanning Calorimeter in the Undergraduate Laboratory: A Class- Project Oriented Program

A computer-interfaced Differential Scanning Calorimeter is being used in the polymer chemistry laboratory course for advanced undergraduates in chemistry and textile chemistry at Southeastern Massachusetts University. A class project orientation is used in which students prepare a series of liquid crystal polymers with different structures. Characterization data is obtained using the calorimeter and students pool their results to reach conclusions on structure/property relationships.